RUI: Purification and Characterization of the Drosophila tRNA End-Processing Endonucleases RNase P and 3'-tRNase

Levinger
9904589
Like other transfer RNAs, Drosophila tRNAs are transcribed as precursors. The 5' end leaders and 3' end trailers are endonucleolytically removed by RNase P and 3'-tRNase, respectively. The CCA at the 3' end of tRNAs, required for aminoacylation, is added post-transcriptionally by tRNA nucleotidyl transferase (tNtase) after cleavage by 3'-tRNase. Like RNase P, 3'-tRNase and tNtase are thus essential eukaryotic enzymes.
Drosophila RNase P will be purified in order to characterize its RNA and protein composition. The same will be attempted for Drosophila 3'-tRNase, the protein enzyme which removes the 3' end of pre-tRNA.
Enzyme-substrate interactions will be characterized by gel mobility shifts and UV-photo-cross-linking. The purification of Drosophila tRNA end-processing endonucleases will contribute substantially to scientific knowledge. Putative RNase P RNA from any insects. 3'-tRNase has been much less extensively studied than other tRNA end-processing enzymes, although the substrate recognition elements and catalytic mechanism of 3'-tRNase are of great scientific interest. Equally important, the project will provide valuable research training to undergraduates at York College which has a predominantly minority (51.9% Black, 13.9% Hispanic, 9.5 % Asian, 0.3% Native American, 5.8% white), female (68%) enrollment. The project will strengthen enzyme purification skills used for both research and teaching. Some of the
students trained in this research project, in a new Biochemistry lab course, and in the Biology and new Biotechnology majors, will join the ranks of under-represented minorities and women entering PhD-level
Research careers in Molecular Biosciences.